CEDAR: High Spectral Resolution Lidar for Profiling Mesopause Temperature, Wind, and Sodium Density

This grant supports the continued study of the physics of Na temperature lidar and its applications. It is expected that with improved technology the temperature error due to laser frequency uncertainty can be reduced to the level of 0.1 K, and that the lidar can also be used to measure radial wind velocity to an accuracy of 1 m/s. Since very little is known about the temperature structure in the mesopause region, measurements of temperature and Doppler-wind) profiles with high resolution are timely and of geophysical interest. A three year-research program will be carried out to further investigate and employ the physics of high-spectral-resolution Na fluorescence lidar, and to elucidate the geophysics in the mesospause region by performing observations regularly and over an extended period with this unique lidar system. In particular, the PI will (1) conduct laboratory and theoretical studies of saturated Doppler-free fluorescence spectroscopy in Na vapor for the purpose of improving measurement accuracy, (2) modify the existing lidar for simultaneous temperature and Doppler-wind measurements, (3) establish nighttime climatology of the mesopause region over Fort Collins, CO and (4) analyze, organize and interpret these unique lidar data in terms of correlated mesospheric response to gravity wave induced perturbations. *** //